A RESEARCH COORDINATION GROUP ON THE CYTOSKELETON, PLASMA MEMBRANE, CELL WALL STRUCTURAL AND FUNCTIONAL CONTINUUM

This is a unit of DOE/NSF/USDA Collaborative Research in Plant Biology Program. This award supports a network of plant scientists who investigate dynamic plasma membrane-cell wall interactions. The plasma membrane plays a key role in cell wall metabolism which changes during normal growth and development and in response to environmental and biotic signals. Recently, several studies have shown that the cytoskeleton is involved in these interactions. Collaboration among cell biologists, biochemists, physiologists and molecular biologists will likely advance our understanding of the integrated functions of the plant cytoskeleton, plasma membrane, and cell wall. Dr. Carpita of Purdue University is the coordinator of the group and there are about 25 scientists from all over the U.S. and some foreign laboratories participating in the group. The research coordination group will establish an electronic bulletin board, will organize retreats/workshops for intense discussion, and will promote new research collaborations between participants.